2005 Archaea: Ecology, Metabolism, and Molecular Biology Gordon Research Conference to be held August 14-19, 2005 at Magdelan College in Oxford, UK

A-1
The domain Archaea is one of the three domains of life, and organisms in this domain
are distinct from organisms in either the domain Bacteria (eubacteria) or the domain
Eucarya (eukaryotes). Although archaeal organisms represent approximately one third
of life's evolutionary diversity and display many interesting and practical properties and
activities, Archaea are much less characterized than are organisms from the other two
domains. The Gordon Research Conference (GRC) on Archaea grew out of a GRC on
methanogenesis, which was held every three years from 1984-1993. The first GRC on
Archaea was held in 1996, and at the second meeting held in 1999, the participants
voted unanimously to make it a reoccurring meeting. The 2001 meeting had an
interdisciplinary program, stressing genomics, unusual metabolism, transcription and its
regulation. A similar theme with added sessions (ecodiversity, extremophilic proteins,
functional genomics) was pursued in 2003. The 2005 conference will emphasize
emerging topics including systems biology, proteomics and biotechnology. These
changes expand on the number of impacted NSF programs and include PIs funded in
MCB, DEB, and BES. Specific programs are itemized in the suggested reviewers
sections. The conference has a diverse and gender-balanced slate of speakers and
session leaders. NSF support for this conference will allow more participants including
students and postdocs to attend the GRC, facilitating interaction between junior and
established American and international scientists.